Pre-SOLA Planning Workshop, April 28-30, 1996 at Biosphere 2, Oracle, Arizona

This award will support planning for an environmental database which will integrate a suite of computer application software to facilitate access to an analytic laboratory database through a networked geographic information system interface. Initial work will focus on data collected by the McMurdo Long-Term Ecological Research project, a large environmental research project located in the antarctic. Planning activities will include a goals/requirements definition workshop. Additional development and workshop activities are contemplated to transfer the results of the project to other Long-Term Ecological Research sites and the community of environmental researchers in general.